REU: Chemical and Optical Physics at Georgia Institute of Technology

This action is for the continuation of a successful program involving undergraduates from a number of local institutions in timely and well-focussed research activities at the principal research-oriented university in the area.